NSF-CGP Science Fellowship Program: Ohmic Heating of Solar Atmosphere

9312988 Hinata This award will support a cooperative research project between Professor Satoshi Hinata, Department of Physics, Auburn University, Alabama, and Dr. Tadashi Hirayama, Solar Physics Division, National Astronomical Observatory, Japan. During a six month visit, Professor Hinata will conduct research on ohmic heating of the solar atmosphere. The collaborators will calculate the dynamical response of the whole loop plasma (from lower chromosphere to corona) heated by the dissipation of force-free currents, where the currents density is determined by the requirement that the coronal energy loss is balanced by local ohmic dissipation. Dynamical calculations are necessary to obtain a meaningful interpretation of the variable UV/EUV fluxes, because the transition layer plasmas are almost always in dynamical states, probably due to heating in the other parts of the atmosphere as well as in the transition layer itself. Results of the research should contribute to knowledge concerning environmental issues in the chemistry and dynamics of ozone. In addition, it could contribute to studies of climate change that also depend on the variation of the total and UV/EUV solar radiative output. Professor Hinata's expertise lies in the area of electric fields in the solar atmosphere. Professor Hirayama is a well known solar physicist who first suggested chromospheric evaporations. Two other scientists in Professor Hirayama's laboratory, who are experts in dynamical behavior of transition layer plasma and magnetic field calculations, are participating in the project. This project is supported by the NSF-CGP (Center for Global Partnership) Science Fellowship Program. ***